NSF Young Investigator

9358268 Martin This is a National Science Foundation Young Investigator award to support research to be performed by the Principal Investigator who was selected through procedures contained in NSF 92-116, Young Investigator Awards FY93 Program. The PI will perform research to develop a simplified method of predicting lateral movements in liquefied sands using laboratory and in-situ test data and case histories. The case histories will involve sites where lateral movements in liquefied sands were measured following earthquake shaking. This research will help in a more accurate estimation of the damage potential of sites and built facilities due to liquefaction caused by earthquakes for a better land use planning. ***